Mathematical Sciences: Statistics for Geophysics

This Small Grant for Exploratory Research will support a reexamination of the roles and uses of statistical theory and methodology in the field of geophysics. One objective is the identification and initial formulation of statistical theoretical questions arising in paleomagnetism and in estimating fields of distortion or motion. A second objective is to identify needs for new statistical methodology or for substantial modification and extension of existing methodology for specific kinds of analysis frequently presented by geophysicists in their research.